Induction Melting Facility

The acquisition of a 20-KW induction melter coupled with a vacuum chamber and zone refining apparatus provides the capability to deal with high melting point metals such as iron, nickel, chromium, cobalt, zirconium and titanium. Undergraduate engineering students perform experiments on solidification, purification, gas-metal reactions and preparation of alloys for electrical and mechanical property determinations.